Control of RNA Processing Drosophila

The goal of this research is to determine the role of the nuclear protein encoded by the Drosophila suppressor of sable ısu(s)! gene in RNA processing control. Mutations of the su(s) gene elevate the expression levels of three vermilion (v) mutants. These v mutants have insertions of a retrotransposon in the first exon of the v gene. The transposon insertion in this position behaves as a large intron and is spliced from the precursor RNA at cryptic sites near the ends of transposon sequences. Experimental observations indicate that su(s) mutations increase the stability of these transcripts. Two models are being proposed to explain the observations. First, RNA stability could be increased if su(s) mutations enhance spliceosome formation at cryptic sites, thereby unspliced RNAs would be stabilized and allowed more time for splicing to occur. Thus, su(s) might encode a component of the splicing machinery. Alternatively, su(s) could encode a protein involved in targeting nuclear RNAs for degradation, suggesting that su(s) might play a direct role in controlling the stability of specific transcripts. The objectives of this proposal are the following. (1) To establish whether the response of v mutants to su(s) mutations depends on splicing at the cryptic sites, these splice sites will be altered (e.g., eliminated and improved) by site specific mutagenesis. After transformation of these derivatives into the Drosophila germ line, expression will be examined in su(s) wild type and mutant backgrounds. (2) To develop an in vitro assay for su(s) activity, nuclear extracts will be prepared from su(s) wild type and mutant embryos and tested by in vitro splicing, spliceosome assembly, and RNA degradation assays. (3) To examine the biochemical properties of the su(s) protein, anti-su(s) antibodies will be used to determine whether the protein fractionates with spliceosomes or if it binds to RNA. Furthermore, attempts will be made to partially purify the protein from either embryos or cultured cells that have been engineered to over express the protein. %%% These studies will provide new information about RNA processing control mechanisms in eukaryotes.